Essential laminations and immersed essential surfaces in 3-manifolds

Abstract

Award: DMS-0102316
Principal Investigator: Tao Li

Essential laminations and immersed essential surfaces are two
important objects in 3-manifolds. They generalize embedded
incompressible surfaces, and are remarkably useful in obtaining
topological and geometric information of 3-manifolds. The main
goal of this project is to explore the relationships between the
topology of 3-manifolds and these two objects. The tools that
the investigator will use include branched surfaces and immersed
branched surfaces that have been proved to be extremely useful in
the investigator's previous work. The investigator intends to
continue his research on essential laminations and immersed
surfaces with the following goals. (1) To construct essential
laminations in 3-manifolds obtained from Dehn surgery on
hyperbolic knots. The techniques to be developed in this
research could potentially have great impact on some famous
conjectures in knot theory, e.g., Property P for knots and the
cabling conjecture. (2) To find an algorithm to decide whether a
3-manifold is a Seifert fiber space. The investigator intends to
use immersed branched surfaces and normal surface theory to find
a practical algorithm. (3) To show that two homotopy equivalent
3-manifolds, which contain essential laminations, are
homeomorphic. (4) To find an algorithm to decide whether a
3-manifold contains an essential lamination.

Three-manifolds are objects modeled on the 3-dimensional space
that we are living in. These objects can be found in many other
sciences, such as physics, biology, and chemistry. A geometric
way of studying 3-manifolds, which is extremely fruitful, is to
view a 3-manifold as a collection of 3-dimensional pieces glued
together along 2-dimensional surfaces. The investigator plans to
study the structure of 3-manifolds using such 2-dimensional
surfaces, which are called essential laminations and immersed
essential surfaces. The research in this project is related to
knot theory, which has helped to understand the structure of DNA;
it is also related to hyperbolic geometry, which has been used by
physicists to understand the universe.